Control of Gene Expression During Lens and Eye Formation

During the past several years Dr. Grainger has been investigating the mechanisms of determination of the lens during embryogenesis. This system provides an excellent general model for the study of vertebrate cell determination because it has been possible to carefully study all of the stages of the determination process. This process has been found to require several inductive interactions, and recent evidence argues that lens determination is tightly coupled to formation of the eye rudiment during gastrulation. This finding has prompted the initiation of studies on eye formation as a complement to work on lens induction. In this proposal experiments are described to continue analysis of gene regulation in this system, addressing three levels of gene expression that are important in lens and eye formation in Xenopus, from terminal differentiation to the initial stages of determination. First, the regulation of cell type specific proteins in these two tissues will be examined: primarily crystallin gene regulation in the lens and opsin gene regulation in the eye rudiment. Second, several cDNA screening procedures will be pursued for identifying gene products which may regulate the early stages of lens and eye determination, or which may serve as markers of these early stages. Characterization of several gene products which have already been identified in these screens will continue. Finally, an experimental approach is proposed for identifying gene products that may control the very precisely regulated ability, or competence, of ectoderm to respond to inductive signals that initiate the events lens and eye determination. While evidence has been accumulating about the molecular genetic controls which govern organization of many regions of the vertebrate embryo, there is virtually no information about how the eye and lens regions are established early in development. A long range goal is to construct and test models for these early processes.